U.S. - Sweden Collaborative Research: Sustainable Transportation and Land Use in the Information Society

This award, supported by the Division of International Programs and the Geography and Regional Science Program in the Division of Behavioral and Cognitive Sciences, allows Anna Nagurney of the University of Massachusetts to collaborate with Lars-Goran Mattson, Lars Lundqvist, and Fari der Ramjerdi of the Royal Institute of Technology in Stockholm, Sweden. The project will synthesize models of sustainable transportation developed at the two institutions and to extend the integrated models by incorporating the impacts of information technologies on transportation and land use.

The project is expected to expand relevant theoretical frameworks and assist in the evaluation of alternative policies for meeting environmental quality standards. The collaboration is an outgrowth of the Social Change and Sustainable Transport initiative that has been jointly sponsored by NSF and the European Science Foundation.